MRI: Acquisition of research instrumentation for applied research and training in biotechnology and bioprocess engineering

0421287
Gyamerah
This proposal is to acquire the required equipment to setup a new Center of Excellence in Biochemical Engineering and Biotechnology for an undergraduate institution Prairie View A&M University. The proposed center will provide training and research in fungal fermentation, fungal biotechnology, biocatalysis and biodegradation.